A Proposed Study of the Late Neolithic in the Egyptian Sahara

9308078 Wendorf With National Science Foundation support Drs. Fred Wendorf and Angela Close will continue their study of the prehistory of the Eastern Sahara Desert of Egypt. They will focus their work on the Late Neolithic period, which dates from approximately 6,500 to 5,000 years ago and investigate two areas. The first is Nabta where a large megalithic complex of standing stones has been located. These are associated with a very large and deeply stratified site which will be excavated. Through the recovery of faunal and floral materials it will be possible to reconstruct subsistence patterns and determine the extent of reliance on domestic vs. wild plants and animals. The investigators will also conduct a survey of the Nabta and adjacent basins and record all Late Neolithic occurrences. A second area near Safsaf has yielded evidence of herding camps which date to the same time range. By collecting and refitting artifacts between sites, the investigators hope to trace herders' movements and determine how they used this area. Egypt is extremely important to our understanding of human prehistory because it marked the cradle of one of the world's great prehistoric civilizations. While much is known about the Pharonic period, the roots of this civilization are not well understood. In particular archaeologists wish to learn whether this culture developed largely independently or whether, as many believe, it is largely derivative from Southwest Asia. Drs. Wendorf and Close believe that important cultural developments along the Nile were strongly influenced by those in the desert to the West and this research will provide relevant data. It will also increase our understanding of how people at a relatively simple level of technology adapted to the harsh fluxuating conditions in the Sahara. This research is important for several reasons. It will provide data of interest to many archaeologists. It will also increase our understanding of how complex society develo ped and how humans adapt to environmental stress. ***